I-Corps: Translation Potential of an Artificial Intelligence (AI)-Enabled Multi-Sensor Vest for Real-Time Safety and Situational Awareness in High-Risk Operations

This I-Corps project is based on the development of an artificial intelligence (AI)-enabled wearable sensing platform that improves safety, situational awareness, and decision-making in hazardous and mission-critical environments. Personnel working in emergency response, public safety, industrial operations, and other high-risk settings often face dangerous conditions where communication infrastructure is unavailable, degraded, or unreliable, creating significant risks to health, safety, and operational effectiveness. These challenges affect millions of workers worldwide and can result in injuries, loss of life, and substantial economic costs. This technology is a wearable system that combines multiple sensing technologies with embedded AI to continuously monitor environmental conditions and user status, detect hazards in real time, and provide actionable information directly to the wearer without reliance on cloud connectivity. By enabling autonomous operation in challenging environments, the technology has the potential to improve worker protection, reduce operational risks, and enhance performance across multiple industries. This may address the growing demand for intelligent wearable systems capable of delivering reliable safety and awareness capabilities in environments where existing solutions are limited by connectivity, fragmented sensing capabilities, or insufficient real-time analytics.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a multimodal wearable edge-Artificial Intelligence (AI) platform that integrates thermal and visible-spectrum imaging, radar, physiological monitoring sensors, and embedded computing technologies. The project is based on research advances in multimodal sensing, edge artificial intelligence, autonomous perception, and real-time analytics that enable hazard detection, health monitoring, impact recognition, and situational awareness directly on-device. Unlike conventional wearable systems that rely on cloud-based processing or isolated sensing functions, this technology performs AI inference locally, allowing reliable operation in communication-constrained environments with low-latency response. Prototype systems have demonstrated the feasibility of integrating heterogeneous sensor data with embedded AI models to support autonomous monitoring and decision support in realistic operational scenarios. Successful adoption of the technology may advance the state of wearable intelligent systems by providing users with faster, more reliable, and more comprehensive awareness of hazards and operational conditions, while enabling scalable deployment across a broad range of safety-critical applications.